Applications and Tools for Configurable Computing in Sequential and Parallel Computers

Configurable computing can customize the hardware of a computing environment for each application. Recently some configurable machines based on field- programmable gate arrays have shown significant performance improvement over more traditional processors. However, this performance has come at the cost of meticulous and time-consuming algorithm mapping. This research consists of two projects that attempt to lower the cost of entry to configurable computing. In the uniprocessor domain, performance monitoring and compilation techniques are under investigation for systems that integrate configurable hardware with traditional processors. Drawing on SUIF compiler technology, this project is working toward identification and optimization of code sections that are both time consuming and implementable using configurable hardware. Such code includes stream-oriented data processing, irregular logic operations, and short integer arithmetic. In the multiprocessor domain, FPGAs are being used to implement application- specific cache coherence protocol processors. The key contribution of this work will be studying the performance tradeoffs of application-specific software, configurable hardware, and custom hardware. These may lead to expanded benefits for application-specific protocols.